Performance Modeling and Analysis of Real-Time Distributed Systems

The objective of this research is to investigate formal modeling and
analysis methods that are applicable to large-scale real-time distributed
systems, such as networked virtual environments. The research focuses on
the development of techniques and tools for performance analysis of
network protocols and Quality-of-Service requirements analysis of the
network connecting distributed real-time applications.
It is proposed to work on the following tasks:
1) Develop (extended fuzzy-timing Petri net) models for protocols in each
layer of network architecture;
2) Conduct network performance analysis and evaluate network effects on
several distributed real-time applications;
3) Focus on the development of new techniques to deal with the state
explosion problem; and
4) Maintain an open library of models for real-time distributed
applications.
The significance and impact of the research are:
1) Provide an integrated framework to conduct performance analysis for
large-scale real-time distributed systems with high efficiency;
2) Help designers of distributed real-time systems in testing, planning,
and improving their work; and
3) Help students learn formal modeling and analysis methods for
network-based software design via graphic interface and simulation.